Engineering Creativity Award: Nonlinear Optical CompositiesUsing Nonlinear Organic Molecules in Inorganic Matrices

The goal of this research project is to create electrooptical devices for optical communications and/or computing systems using nonlinear optical materials. In particular, nonlinear optical composites will be fabricated and characterized by placing highly nonlinear organic molecules in inorganic matrices. Nonlinear effects have been shown to be much larger in organics compared to the best inorganics. Significant fabrication problems exist, however, in developing materials containing organic molecules. A possible solution to these problems lies in the sol-gel process for making glass. In this project, sol-gel solutions will be used as the host material for optical organic molecules. The new organic- inorganic composite material will be formed by mixing nonlinear optical organics into the sol-gel solution so that SiO2 is the host. The sol-gel should form a SiO2 cage around each organic molecule locking it in place. Alignment of the organic molecule composites is accomplished by the poling techniques in order to observe the necessary second order effects. By depositing sucessive layers of sol-gel with different indices, nonlinear optical waveguides can be realized. The general plan of research is essentially synthesis (fabrication), characterization (of materials), and device realization.